Time-Domain Electron Spin Resonance Studies of Spin- Labelled Synthetic Peptides

The structure and dynamics of complex biopolymers in solution are subjects of considerable debate. Some researchers believe that proteins exhibit large structural fluctuations and that these fluctuations influence both the protein's structure and its reactivity whereas others suggest that a static picture of protein structure is more relevant for the prediction of biological function. Still others suggest that spin glass theories provide the correct potential energy description with the potential energy surface exhibiting ultrametric properties (i.e., a hierarchy of energy minima within energy minima) whereas others believe the ultrametricity is not the correct description. This project will study biophysical systems in an attempt to resolve these questions. It has recently been shown that synthetic peptides provide excellent models for the structure, dynamics and folding of proteins. In time-domain or pulsed electron spin resonance (ESR), now emerging as a leading technology for studying dynamics and relaxation process in biological systems, the temporal range which can be studied covers the majority of protein internal motions. In this project, time domain ESR studies will be carried out on a series of spin-labelled peptides. A theory for spin relaxation has been developed for alpha-helical peptides which predicts that the spin-spin decay will follow a power law profile when the peptide is in the region of the alpha-helix-random coil transition. Conformation of this prediction will be a major step toward resolving the origin of power law relaxation processes in proteins.